Undergraduate Political Science Statistics and Research Laboratory

This project will allow undergraduate political science majors at Grambling regular access to a data analysis and computer lab for use in conjunction with statistics and research methods courses to enhance data collection and analysis skills, computer skills and general analytic skills for the minority undergraduate student body (the student body at Grambling is nearly 98% African-American). The statistics and research methods sequence, which figures prominently in this project, will feature the hands-on development of small manageable datasets (students are encouraged to collect primary datasets in the areas of political behavior, national political institutions, or public administration from sources readily available on campus or nearby), the preparation of the data for analysis and all other steps necessary for correctly evaluating data. Utilization of Exploratory Data Analysis techniques will allow students maximum flexibility in their analyses.